Workshop on the International Global Atmospheric Chemistry Program, Melbourne, Australia

As a continuing effort to develop an International Global Atmospheric Chemistry Program, the International Association of Meteorology and Atmospheric Physics (IAMAP) Commission on Atmospheric Chemistry and Global Pollution (CACGP) has agreed to act as an international group of scientists to provide a forum for discussion of the goals of an international research program and to aid in the overall coordination for the program. The CACGP has 31 members who are actively involved in atmospheric chemistry research. CCGP members are from Australia, Belgium, Canada, China, DDR, France, FRG, Hungary, India, Japan, Norway, Sweden, Switzerland, United Kingdom, USA, and USSR. The CACGP agreed to convene a second international workshop in Melbourne, Australia in November, 1988. The objectives of this workshop are: 1. To review research programs presently being planned by national and multi-national groups, with the view of identifying scientific questions where cooperative international research would be most beneficial; 2. To discuss goals of long-term international tropospheric chemistry research, with the identification of an international coordinating mechanism; 3. To prepare a scientific and organizational plan for international research in tropospheric chemistry.